SGER: Interagency Education Research Initiative: Planning Grant for National Data Collection Center

This SGER award is for the determination of the research needs for a national Data Collection Center (DCC) that will serve the Interagency Education Research Initiative (IERI) data collection, aggregation, and dissemination needs to implement the long term goals of the IERI. These goals include fostering innovative research on technology driven scalable and sustainable education interventions. The planning grant will conduct meta-evaluations of the all the research and evaluation designs for the IERI projects with the intent of developing a service that will enable the results to be both disseminated and used by other researchers. The planning grant will involve the IERI principle investigators in addition to a National Advisory Committee. The results of this planning grant will be used to define the research requirements for a DCC to serve the goals of the IERI. These requirements will be used in any future competition for a national DCC.